CAREER: Work Contexts, Teacher Learning Opportunities, and

This CAREER proposal has four objectives: 1) examine the nature of mathematics teachers’ learning opportunities for instructional improvement, 2) examine how work contexts influence the quality of teacher learning opportunities, 3) examine the impact of teacher learning opportunities on changes in student mathematics achievement over four years, and 4) work with district and school administrators to promote instructional improvement and student achievement by effectively providing learning opportunities to mathematics teachers. The PI will conduct a statewide survey of 1,047 mathematics teachers in 201 middle schools and their 35,304 students in grades 6-8 throughout the state of Missouri.